Postdoctoral Research Fellowships in Chemistry

Dr. Patricia Keane has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Keane's doctoral degree was from Northwestern under the direction of Professor James Ibers. She intends to continue research at the University of Chicago with Professor Jeremy Burdett. Her background is in the synthesis of ternary and quaternary solid state tellurides. She has selected postdoctoral work with Burdett so that she can learn the theoretical approaches of electronic band structure calculations in order to gain a better understanding into bonding in solids. Her long term goals are the study of chemical and electrical modification of Arsenic, Antimony and Bismuth through intercalation. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.